Empirical Validation of Information Theory-Based Software Metrics

CCR-0098024
Empirical Validation of Information Theory-Based Software Metrics

Edward B. Allen, P.I, and Rayford B. Vaughn, co-P.I.

Empirical Validation of Information Theory-Based Software Metrics is a
research project of Mississippi State University that is empirically
validating the usefulness of a new generation of software metrics, based
on information theory.

Software engineers employ a wide variety of diagrams during development
of software. Because many abstractions of software are represented by
graphs, metrics of graph attributes have the potential for wide
application. Information theory is an alternative to counting, focusing
on the amount of information in an attribute. The contribution of this
project to the state of the art is empirical evidence that information
theory-based software metrics of size, length, complexity, coupling and
cohesion can be useful timely predictors of software quality, and that
they have advantages over counting-based metrics.

Case studies in collaboration with industrial and government software
development organizations are providing a meaningful evaluation by
examining a variety of real-world software systems large enough to be
comparable to other industry projects. Collaborators include EDS Inc.,
Ericsson Inc., and MPI Software Technology Inc. Results will be
disseminated throught the Center for Empirically Based Software
Engineering (CeBASE). The empirical evidence generated by this project
is aimed to facilitate a new level of cost-effective improvement to
software quality.